South Dakota Native American Mathematics Enhancement(SDNAME)

9452674 Elkhader Northern State College seeks to initiate a comprehensive, residential program, called South Dakota Native American Mathematics Enhancement (SDNAME), consisting of a four-week summer enrichment institute for 30 high potential Lakota/Dakota students in grades 10 and 11. SDNAME is targeted at native American students, half of which will be female. Students will participate in activities and experiments involving discrete mathematics, game theory, and mathematical biology. The goals of the proposed project are to: develop students' interest in mathematics; build a peer group interest in mathematics; and raise self confidence and encourage the study of mathematics or mathematics-dependent fields. ***